From Computer Data to Human Knowledge: A Cognitive Approach to Knowledge Discovery

This research is being done in conjunction with IIS-9731990, which is being
performed by Michael Pazzani in the Information and Computer Science
Department at the University of California, Irvine. The research is
concerned with intelligent decision aids that can be developed by data
mining techniques. Experience has determined that such systems can learn
accurate models, but that experts in areas where those models are used in
decision aids are often reluctant to trust them because they do not, for
instance, use the same tests intermediate conclusions or abstractions that
the experts have grown to trust. Or they do not use certain factors at all
that experts feel to be relevant. Experts also want models that are stable
under small changes in the data being analyzed. Psychologists have
discovered factors that simplify the learning, understanding, and
communication of category and process information by humans. This research
seeks to explore these psychological principles in light of the output of
existing KDD algorithms and then go on to develop and evaluate new KDD
algorithms that will provide output that is easy for people to learn , use,
and communicate to others. With the results of this research, it should be
possible to make such decision aids more "human centered", so that they
will be used more often and more effectively in practice.

http://www.gatech.edu/psychology/faculty.htm